Glycolytic Enzyme Dynamics in Living Cells

9403510 Pagliaro Much of modern biology is based on the study of cellular organization in fixed specimens or in dilute aqueous solutions. While this approach has been very valuable in the past, it has its limitation when one approaches the organization of the cytoplasm. The goal of this proposal is to study the organization and behavior of several glycolytic enzymes in living cells. These enzymes are believed to exist freely dissolved in cytoplasm, but much recent evidence suggests that they may exist partially in the solid state. During the first year of the project efforts will be focused on continued studies of the enzymes aldolase and triose phosphate isomerase. These enzymes are believed to interact with each other and with the actin cytoskeleton, either directly or indirectly. The intracellular distribution and mobility of each of these enzymes will be compared using fluorescence ratio imaging and fluorescence redistribution after photobleaching and the interaction of these enzymes in vitro and in vivo will be characterized extensively. Specific antibodies will be used against aldolase, cloned mutant aldolase, and fluorescence resonance energy transfer to probe the interactions between these enzymes both in vitro and in living mammalian fibroblasts. The significance of the work is three-fold. First, it is clear that many reactions generally treated as occurring in soluble phase may have some structural basis. Characterizing and understanding the cellular organization of these reactions is one of the important challenges remaining for biochemical pathways. Second, molecular organization of biochemical pathways may provide a link between biochemical logic and three dimensional cytoplasmic organization. Identifying the rules by which nature has optimized biochemical reactions may allow genetic manipulations to improve quality or efficiency of animals, microbes and plants. %%% Understanding the cellular organization of metabolic processes i s a basic requirement in our undestanding of life. The work proposed here to investigate the dynamics of glycolytic enzymes in living cells will eventually provide new tools for investigating other processes. Understanding the spatial and temporal organization of the cytoplasm is a basic requirement for future genetic engineering experiments in animals, microorganisms and plants. ***